Molecular Cytology Core Facility

Dr. Thomas Phillips, in conjunction with ten major users, proposes to set up a resource center for immunocytochemistry and in situ hybridization technologies at the University of Missouri. The center would include, and funds are requested for, a confocal fluorescence microscope, a computer graphics system for three-dimensional reconstruction of confocal microscope images, a low-light microscope and camera for fluorescence studies, and an associated image processing system for ration imaging of indicator dyes to determine cellular pH or ion concentrations. The center will incorporate some already existing equipment: a transmission electron microscope, microtomes and a cryostat. This facility would complement existing campus-wide cores for monoclonal antibody production and oligonucleotide synthesis. Various units within the University will provide 50% of the capital costs, long-term salary support for staff, substantial existing equipment, and funding for laboratory renovation and continuing service contracts.